REU Site: An Undergraduate Research Experience Program in Discrete Mathematics

The objective of the program is to provide an opportunity for seven
carefully selected undergraduate students to learn firsthand the nature of
mathematical research. The participants will conduct independent
investigations, under the guidance of experienced researchers, on problems
in graph theory and combinatorics.

Duration: June 10 - August 14, 2002
Stipend: $2000 for the full 10 week period
Allowances: Travel up to $500; living expenses $1000; on-campus
apartment housing
Deadline for applications: February 14, 2002